PYI: Heterostructure Device Research

III-V heterostructure device research for future advanced communications systems is proposed. A two-prong strategy will be pursued. Evolutionary devices with sufficiently well established operating principles on InP are targeted. Considerable technological work is needed before the outstanding electronic properties of InP-based semiconductors is correctly exploited. Our strategy relies on bandgap engineering, careful introduction of strain, and monolayer epitaxial growth. Revolutionary devices will also be investigated with the goal of synthesizing an entirely new class of "smarter" electronic devices with enhanced functionality. To this aim, we are studying quantum effects in reduced dimensionality heterostructures. Our guiding principle is the strong analogy between photons in guided-wave optics and electrons in one-dimensional (1D) quantized structures. Our technological effort will be centered around the fabrication of ballistic quantum wires and coupled quantum wires which are a test-bed for studying new electron interactions in constricted geometries.